Mathematical Sciences: Harmonic Analysis and Operator-Theory

This project provides continued support of mathematical research into problems in partial differential equations and potential theory. Particular emphasis will be placed on equations with coefficients which lack smoothness. Specifically, to obtain mean-square estimates of operators arising in the solution of equations with such coefficients. The form of the analysis is one of studying singular integral operators defined along curves. The kernel is of Cauchy-type and the boundedness of integral transforms reflects the smoothness of the solution of the related differential equation. A second line of investigation will focus on the non-linear phenomena of singularity formation. For example, three-dimensional incompressible fluid flow with high Reynolds number exhibits singularities in finite time even with smooth initial data which vanishes outside bounded sets. This project is specifically concerned with what is called Kato's conjecture. For certain differential operators a square root can be defined. The domain of this square root is thought to be one of the basic classes of functions used in the study of differential equations, Sobolev space. This has been verified for one-dimensional operators by making the connection with boundedness of Cauchy-kernel transforms on certain curves. What remains to be done is the classification of the square roots' domain in higher dimensions. Work on singularity formation combines numerical experimentation with general theory. It is known that singularities in the flow can occur only through a stretching of the vorticity, i.e. the curl of the velocity field becomes unbounded. This makes numerical approximations of solutions which form singularities a subtle issue. Emphasis in this research will be placed on a simple prototype model in which the transport term will be studied closely. The object is to see whether the transport terms delay or accelerate breakdown of the solution.